Applications of Fourier Analysis to Banach Space Theory

DMS-9820848
ABSTRACT

The PI plans to study finite dimensional normed spaces and
convex bodies using methods of Fourier analysis. The idea is
to express different properties of convex bodies in terms of
the Fourier transform and then solve geometric problems using
Fourier analytic methods. This approach has already led to
several results including the Fourier transform formulae for
the volume of sections of star bodies and a complete analytic
solution to the Busemann-Petty problem on sections of convex
bodies. The emphasis is on developing new connections between
the Fourier transform and parallel section functions (X-rays)
of convex bodies that will lead to new information about the
structure of subspaces of Banach spaces, geometric properties
of certain classes of convex bodies. The results will also be
applied to the study of positive definite norm dependent functions
(theorems of Schoenberg's type) and their connections with stable
and isotropic stochastic processes.

This research will provide new connections between several areas of
mathematics and engineering. Many of the results will have equivalent
formulations in the languages of functional analysis, geometry and
harmonic analysis. The study of subspaces of normed spaces is closely
related to geometric tomography. The classical problem is to determine
certain geometric properties of a solid by means of the areas of its
slices obtained with differently placed sources of X-rays. The Fourier
transform approach will contribute to this important problem in medical
engineering. An application to statistics is the study of different
parameters of stochastic processes under restricted data. An important
example is the problem of determining the main frequences of a signal
when only the maximal amplitude can be measured. New techniques for
calculating the Fourier transform will serve as an important tool
and will have other applications to signal processing.